CAA: Selection on T Haplotypes in House Mouse Field Populations: Test of the Transmission Ration Distortion Phenomenon

9509015 Miller Baker The purpose of the research is to assess the levels of deleterious t haplotypes in house mouse populations in order to test basic assumptions by modellers of the transmission ratio distortion phenomenon. In this study the PI will use DNA sequencing to elucidate the molecular mechanisms of segregation disorder. The proposed research is one of the few field studies of segregation disorder. In addition, the PI will be studying the impact of dispersal, social structure and mating behavior on population genetics. This investigation of female choice will be of interest to behavioral ecologists and population geneticists studying sexual selection.